Product Decompositions of Groups

The main aspect of the project is to consider decomposing families of
finite and infinite groups as the product of cyclic, Abelian or solvable
subgroups. The historical background comes from Ito's theorem, Lazard's
work on analytic pro-p groups and the connection between bounded
generation and the congruence subgroup property for arithmetic groups
established by Lubotzky, Platonov and Rapinchuk. While the PI considers
problems motivated by these major results, he also investigates cyclic,
Abelian and solvable decompositions in a broader context: for finite
simple groups, infinite permutation groups, geometric groups and groups
acting on trees. Besides rather surprising constructions (e.g., the
infinite symmetric group is the product of finitely many Abelian
subgroups), the existence of such a decomposition leads to strong
asymptotic restrictions (e.g. on subgroup growth). On the other hand,
trying to show that a certain decomposition does not exist forces one to
look at the subgroup structure from a new point of view which then can be
analyzed further. An example for this is Hausdorff dimension of groups
acting on rooted trees.

The set of symmetries of any object or structure forms a group. Thus group
theory naturally comes into the picture whenever one needs to analyze
symmetries (e.g. in quantum physics and chemistry or inside mathematics in
geometry, number theory, coding theory and topology). The main goal of the
proposed project is to find certain 'coordinate systems' in families of
groups and so generate these groups in a transparent way using simple
structures or to show that such nice systems do not exist. An elementary
example is the fact that every plane isometry can be obtained as the
composition of at most three reflections but not as the composition of
two. There are manifold connections between the existence of such
'coordinate systems' and various other interesting group properties. Other
than deep and useful results, the project also has elementary aspects
which can be presented on an undergraduate level and thus serve
educational purposes.